The 2013 Space Weather Workshop; Boulder, Colorado; April 16-19, 2013

This supports the 2013 Space Weather Workshop to be held in Boulder, Colorado on April 16-19, 2013. This annual workshop brings together representatives of industry, academia and government to present papers and discuss issues related to space weather. This is one of the few opportunities for the broad community interested in space weather to get together. Emphasis at the workshop is on the impacts of space weather on technology including communications, navigation, spacecraft operations and electric power.

In addition to bringing the three communities interested in space weather together this workshop invites both undergraduate and graduate students. This provides the students with information on research developments and on how that research is relevant to operations.